Envisioning International Regimes: The Politics of Prenegotiation in the Arctic

9320559 YOUNG This project seeks to add to our understanding of regime formation in international society by focusing on the prenegociation stages of international relations in the Arctic. The prenegociation stage covers the process through which issues initially find their way into international political agendas, are considered in international forums, and rise to prominence in international negociations. The project involves a detailed analysis of four current cases: (1) The Arctic Environmental Protection Strategy, (2) The Euro-Arctic Barents Region, (3) The Arctic Council, and (4) the Bering Sea Region. The study will examine a series of hypotheses about the forces at work in the prenegociation stages, including the influence of non-state actors and the role of individual leaders. ***